Type Systems for Secure Remote Evaluation

A remote evaluation system is characterized by a client that sends a program to a compute server for execution on its behalf. The server returns to the client the results of executing the program. This is in contrast to RPC and CGI scripts which are examples of server-side programs, not remote evaluation. Remote evaluation appears to be gaining currency as evidenced by new programming languages emerging to support it. Among them are Telescript, Tcl, Oblique and Java. The download-and-execute paradigm supported by Java and Java-compatible Web browsers is an example of remote evaluation; in this case, however, a Web server sends a Java-enhanced HTML file to a browser which the browser then executes. Server security is a major problem with remote evaluation. A server's availability, privacy and integrity must not be compromised. Current techniques for ensuring server security is ad hoc. There is no precise characterization of what kind of security properties these techniques can guarantee. Consequently, the typical reaction is to limit, or in most cases prohibit altogether, an application's access to server resources. This greatly weakens the remote evaluation paradigm. This research investigates the role of programming language design and type systems in ensuring the security of servers in remote evaluation systems. Specifically, the long-term objective is to develop static analyses, within the context of type systems, to ensure that remotely-evaluated programs do not violate a server's privacy or integrity. Type soundness theorems are being developed and proved with respect to a formal semantics for a core imperative language. They precisely characterize the security properties of well-typed programs written in the language. The impact of features such as concurrency and exceptions in a programming language on security properties is also investigated. ***